Enhancing the Capabilities for Characterization of Magnetic Materials at the University of California, Davis

0216346
Verosub

Researchers at UC-Davis have recently developed a technique that uses partial hysteresis curves to determine the distribution of magnetic properties within a material. The method probes the microscopic mechanisms of magnetic behavior in greater detail than is possible with major hysteresis loops or with conventional magnetometry. This Major Research Instrumentation grant will provide funding for a combined Alternating Field Gradient and Vibrating Sample Magnetometer with high magnetic field and low temperature capabilities. The instrument will allow researchers to look at a much wider variety of materials under a much broader range of conditions than can be done presently. These enhanced experimental capabilities will lead to new advances in paleomagnetism, rock and mineral magnetism and environmental magnetism as well as new insights into condensed matter physics, particularly synthetic magnetic materials and magnetic nanostructures.
***